CAREER: Networking and Communication Techniques for Wireless Applications

NCR-9501452 Goldsmith, Andrea The broad goal of this research is to address fundamental issues in the design, analysis, and implementation of wireless networks. Issues treated will cross traditional boundaries between signal processing, communications, and networking. The work will first develop a networking, architecture and protocol suite to support the internetworking of wireless subnetworks. A hierarchical network infrastructure will be considered that exploits the broadcast capability and power control of radio channels. Optimum location of multimode gateways and hierarchical databases to aid in mobility management and routing within this infrastructure will be determined. Optimization techniques for efficient allocation of spectrum will be studied using techniques from dynamic programming. Formal methods for obtaining and analyzing channel policies will be developed and applied to analysis and design issues. Joint source/channel coding techniques to minimize end to end distortion will be examined. Emerging wireless applications will be considered and a global networking infrastructure to support these applications will be sought. The education component will develop innovative and dynamic course programs at the undergraduate and graduate level in wireless communications, networks, and dynamic programming. These activities will encourage industrial collaborations.